A Hollow Fiber Bioreactor for the Production of Monoclonal Antibodies

A radial flow hollow fiber mammalian cell culture system is to be used for continuous culture of non-anchorage dependent murine hybridoma. Continuous production of monoclonal antibodies is being investigated. Hybridoma cell lines PM-81 and AML-2-23 are used for mass culture and monoclonal antibodies production studies. The project also evaluates the feasibility of ;itin situ;ro membrane separation of antibodies, and investigates the long-term stability of the culture and antibodies production. Analysis is complemented by mathematical models which incorporate hydrodynamics, membrane transport, and transient behavior of culture systems.